Workshop on Solid Freeform Fabrication, Pittsburgh, PA

This is a proposal to hold a workshop involving about a dozen leading researchers from academia and industry to discuss: 1. The type of part description for use in SFF definition; 2. the nature of design tools to support SFF fabrication; and, 3. the formats for data interchange in solid free-form fabrication.